Cluster of Clusters: Structural Systematics of High Nuclearity Au-Ag Clusters

The Inorganic, Bioinorganic and Organometallic Chemistry Program supports fundamental studies at the interface between inorganic chemistry and solid state physics which deals with the intriguing question of when does metallic behavior take over from molecular behavior. This research in the chemistry and physics of metal clusters will eventually lead to the discovery of materials with unusual physical or chemical properties. The project is to study the stereochemical systematics of a novel series of high nuclearity Au-Ag clusters. The structures of these bimetallic clusters are based on vertex-sharing of centered icosahedral cluster units as building blocks which can be referred to as "clusters of clusters". Metal clusters corresponding to the magic numbers 13, 25, 36, 46, 56, 76, and 127 can be obtained by condensation of 1, 2, 3, 4, 5, 7, and 12 centered icosahedral cluster units, thereby providing a reasonable pathway to clusters of increasing nuclearity. It is hoped that investigations of these large metal clusters of discrete size and shape will shed light on the fundamental question of when, where, and how the metallic character begins and ends, as well as lead to new materials with unusual physical and chemical properties.